Digital Government: Transnational Digital Government

EIA-0131886
Jose Fortes
University of Florida

Digital Government: Transnational Digital Government

With entre provided by Organization of American States (OAS), the US research team will collaborate with researchers from universities in Belize, Mexico, and the Dominican Republic. The domain is drug interdiction, under an arm or the OAS - the Inter-American Drug Abuse Control Commission. Under the COmmission, member states of OAS collect, share and analyze information in standard ways. Within this context, research will be undertaken in the areas of spoken dialogue systems, data management and security for rule-based data sharing and filtering, information retrieval and machine translation, middleware to support these transnational information grids, and network behavior modeling for acceptable quality of service.